Numerical and Experimental Investigation of Solidifications Process with Convection

ABSTRACT

CTS-9901040
A. BENARD

The principal investigators propose a coordinated experimental and numerical study of convection in the melt region of solidification that is due to compositional variations. The mushy zone is the origin of a porous network of chimneys, called freckles, which degrade the quality of casting. The research will further the understanding of silidification and lead to improve manufacturing processes. The numerical work consists of developing new algorithms, based upon wavelet discretization, to determine chimney spacing and freckle formation. This will reduce the time required for simulation and improve accuracy. The experimental work will measure the velocity fields using an optically transparent analog of a binary metallic alloy using Molecular Tagging Velocimetry. Different melt configurations in three dimensions will be studied. The data will be used to validate the wavelet-based models. The final results will be improved, gridless, simulation tool to study practical manufacturing configurations and processes.